Undergraduate Faculty Enhancement in Membrane Technology

Membrane technology is a state-of-the-art area critical to many of the traditional and emerging engineering fields. It is important, therefore, that undergraduate faculty be educated in the field of membrane technology in order to integrate it into the engineering curriculum . Membrane processes are being incorporated into the growing areas of biological engineering/biotechnology, hazardous waste management, microelectronics production, specialty chemical and biochemical production, biomedical engineering, and in the traditional chemical and petroleum industries. This workshop is combining both the lecture and laboratory components of this advanced technology providing participants with hands-on experience. Workshop participants attend lectures on the fundamentals, design and applications of membrane processes such as reverse osmosis, ultrafiltration, microfiltration, electromembranes, pervaporation, gas permeation and hybrid systems. The undergraduate faculty participants perform experiments with state-of-the-art membrane systems and investigate actual applications to industry. Several publications, a "white paper" and laboratory manual result from the successful execution of this workshop. These publications substantially broaden the impact of the project and significantly contribute to improvements in undergraduate science and engineering education.